Expanded Dendroclimatic Reconstruction of Great Plains and Central Rocky Mountains Drought

Abstract ATM-9729571 Woodhouse, Connie A. University of Colorado Title: Expanded Dendroclimate Reconstruction of Great Plains and Central Rocky Mountains Drought This award supports research to: 1) reconstruct spatial and temporal patterns of drought in the central Rocky Mountains and central High Plains through dendroclimatic reconstructions of Plains drought back at least 700-1000 years and South Platte and Arkansas River basin snowpack back at least 300 years, and 2) characterize and examine relationships between atmospheric circulation patterns that have accompanied droughts related to both low snowpack and lack of growing season moisture over the past centuries. This work will provide an expanded temporal context from which to evaluate the variability of seasonal precipitation, and thus water supply, as well as provide information about the influence of atmospheric circulation features on drought variability in the region.